Numerical Methods for Particle Transport Problems

The goal is to continue the development of advanced numerical methods for solving particle transport problems. The new methods will be more accurate and more computationally efficient than current methods. These advances will be accomplished by employing new mathematical algorithms for the discretization and iterative solution of deterministic transport problems and new variance - reduction strategies for Monte Carlo problems, for both scalar and advanced parallel-architecture computers. For deterministic transport problems, asymptotic expansions will be used to predict the accuracy of transport differencing schemes for problems with optically thick spatial cells and to use these asymptotic results explicitly in a diffusion synthetic acceleration algorithm so that iterative transport solutions can be obtained very rapidly. For Monte Carlo problems, a generalization of the exponential transform method will be developed. This will significantly reduce the computational cost of Monte Carlo calculations, making these calculations more accurate and less expensive.